Raman Spectroscopy of Molecules Adsorbed on Solid Surfaces

This research project, supported in the Analytical and Surface Chemistry Program, explores the interfacial chemistry of polymers on solid surfaces using surface Raman spectroscopy as the primary tool. The work focusses on the interaction of polyimides deposited on copper and chromium surfaces, and on their oxides. A molecular understanding of the bonding interaction is the goal of these studies, which will help to explain properties of these polymer metal systems such as adhesion. Additionally, an important goal of this project is the elucidation of the chemical mechanism of the surface enhanced Raman process. Connections will be made between the electronic structure of surface adsorbed species as probed by high resolution electron loss spectroscopy and the Raman enhanced spectra of a series of molecules adsorbed on silver, copper, and gold surfaces. The study of the interfacial chemistry of polymers adsorbed on metal and metal oxide surfaces is the focus of this project supported in the Analytical and Surface Chemistry program. The polyimide on copper system, an important one in electronic materials processing applications, is the primary interface investigated. Raman spectroscopy will be used to probe this interface, and an additional focus of the work is the development of a detailed understanding of the chemical mechanism of surface Raman enhancement.